Collaborative Research: Extending and Investigating the Impact of the High School Model-Based Educational Resource

This project builds on a line of work that has developed and studied the Model Based Educational Resource (MBER), a year-long curriculum for high school biology. In classrooms using MBER, modeling serves as an anchoring practice that keeps the inquiry tied to the goal of making sense of the world, helping teachers to engage their students in a range of cognitive and social activities that lead to deep understanding of scientific ideas. This project will generate rigorous causal evidence on how this approach to biology teaching and learning can support student learning, and foundational information on how to support high school teachers in improving their teaching. This funding will also provide resources to expand and update MBER to reflect the changing high school science landscape by integrating Earth Science standards into the year long sequence. The study will address the general research question: What is the impact of the Model Based Educational Resource (MBER) on high school students' science achievement, and what factors influence that impact? In addition to generating important research findings, the materials revised and studied in this project will be open-source and freely available to teachers and schools.

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of instructional innovations. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This study addresses a significant gap in the research on next generation curriculum materials. While there is emerging agreement about the importance of instructional materials in supporting teachers in effectively engaging students in the practices of science, there is very little empirical evidence to support such claims. The goal of this project is to study the impact of the MBER program through a cluster randomized trial and expand the promise of efficacy and feasibility established in previous work. This study will be able to make causal claims by using an experimental design in which 32 high school teachers serve as their own controls, and by using multi-level modeling in the analysis. This study will advance the field's knowledge about the impact of innovative materials on student learning, measured by both project-level assessments and the state science test. Exploratory research questions will examine a) how using the MBER program develops teachers' vision of the Next Generation Science Standards, b) how student learning is mediated by the fidelity of implementation of the materials, c) how teachers interact with materials designed to be modified for their classroom context, and d) to what extent the MBER materials provide equitable opportunities to learn and close achievement gaps.